Collaborative Research: Conference on Cyberlearning Tools for STEM Education

The Conference on Cyberlearning Tools for STEM (CyTSE) brings together scientists, cyberlearning developers, educational researchers, STEM educators (formal and informal), curriculum developers and other stakeholders that contribute to the agenda on K-12 STEM cyberlearning and workforce preparation. Collaborators include Northwestern University, University of Colorado at Boulder, and the WGBH Educational Foundation. This informative meeting will be held as a NSTA pre-conference workshop. The conference plan includes keynote presentations by prominent cyberinfrastructure and cyberlearning professionals, an expert panel on cyberlearning and the future of STEM education, hands-on demonstrations of cyberlearning tools for participants, and interactive poster sessions. Potential tracks for the poster sessions include emerging technologies, design and development, technical challenges and solutions, implementation and integration, and research and evaluation. The second day of the conference will include teacher professional development workshops, as well as in-depth design focus groups, developer integration and interoperability workshops, and a session emphasizing the development of a cyberlearning research agenda.

Additional deliverables include a video overview of the conference (for those unable to attend), a white paper proposing a cyberlearning research agenda, and an evaluation study to measure the impact of the conference on participants. A series of post-conference webinars will be hosted by WGBH's Teachers' Domain and publicized on their Facebook, Classroom 2.0, and Science Ning sites to encourage ongoing collaboration. It is anticipated that this two-day conference will bridge gaps between the stakeholder communities and expose important trends and issues that will contribute to a comprehensive research agenda.